U.S.-China Cooperative Research: Modeling and Testing Software Tools for Mixed Signal Circuits

9602485 Feng This award supports cooperation between Feng Lin, Wayne State University, and Lin Zhenghui, Shanghai Jiaotong University, on modeling and testing software tools for mixed signal circuits. The project involves development of a software tool for computer aided design and testing of mixed signal circuits. The proposal is closely related to work funded under ECS 9315344. The project involves an important Institute at Shanghai Jiaotong University, a top-notch technological university in China. The Institute for VLSI (very large systems integration) has attracted significant funding from domestic sources as well as from foreign multinationals. The Institute has substantial resources committed to this joint project, which involves complementary skills and facilities on both sides.